Revitalizing a Departmental Teaching Laboratory

This award will provide funds to revitalize a teaching laboratory in the Department of Psychology which was initiated a decade ago to improve the breadth and scope of its undergraduate curriculum. The lab offers eight undergraduate laboratory courses to its 900 majors in a shared microcomputer-based teaching facility. Funds will be used to replace its once state of the art, but now worn out microcomputer with powerful and flexible modern equipment. While the instructional programs currently in use in all eight courses can be quickly migrated to execute on the new equipment, the focus of the effort will be on the Laboratory in Cognition, which served as the prototype for the other courses. In this effort, the Project Director will incorporate the major enhancements to the curriculum that he is completing for CONDUIT (but cannot be implemented on current equipment) and will endeavor to push the field ahead by using new technology to devise laboratory experiences that were not previously feasible. After appropriate evaluation and testing, these new instructional materials will be widely disseminated. The grantee institution is matching this NSF award with funds from non-Federal sources.